Excited State Interactions Between Molecular Oxygen and Organic Molecules

This project by Peter Ogilby of the University of New Mexico, which is within the Organic Dynamics Program, is aimed at an understanding of the way in which excited states of molecular oxygen may be generated and destroyed. Of particular interest, is the excited state interaction and energy transfer between molecular oxygen and organic molecules. These studies will provide information about the degradation of organic materials in air. Excited state interactions and energy transfer between molecular oxygen and organic molecules will be investigated using a variety of spectroscopic techniques including time-resolved detection of singlet molecular oxygen phosphorescence and time-resolved absorption studies of molecular transients (e.g., triplet states and radical ions). Recent results suggest the following two areas to be especially fruitful: (1) a study of the oxygen-organic molecule charge-transfer (CT) state and the extent to which it determines oxygen-organic molecule photophysics and photochemistry, and (2) a study of oxygen-organic molecule interactions in solid organic polymers.